Update of Equipment Used in Undergraduate Biochemistry Labs

The Chemistry Department at Eastern Kentucky University has recently acquired the equipment needed to develop and implement modern, instrumentation-oriented laboratory courses in biochemistry. This equipment (which represents the basic tools of the biochemist) includes spectrophotometers, a high-speed centrifuge (used in almost every phase of biochemistry), and electrophoretic apparatus (used in the characterization and purification of many types of large molecules). The use of this instrumentation, together with other important equipment such as clinical centrifuges (for applications not requiring high speed), and chart recorders (to record data on a continuous basis), affords students excellent laboratory experiences in biochemistry and provides them with better preparation for advanced study.